Workshop on Modern Perspectives in Applied Mathematics; New York City, NY

This award supports participant travel for the Workshop on Modern Perspectives in Applied Mathematics, held at the Courant Institute of the Mathematical Sciences, 18-22 May 2009. The conference brings together leading experts in stochastic and multi-scale modeling to discuss the extent to which recent advances have enabled further progress in the field and possible lines of attack for open problems.

Specific themes discussed at the conference include:
(1) Advances in stochastic partial differential equations, fluids, mean-field games, combustion, and partial differential equations in random media.
(2) Advances in stochastic modeling techniques for the elimination of irrelevant degrees of freedom in large dynamical systems and the derivation of effective systems for suitable coarse-grained variables.
(3) Advances in approaches for quantifying information flow in complex systems, such as Bayesian hierarchical modeling and reduced-order filtering strategies of Kalman type.

The program features keynote addresses, presentations by young researchers, and an evening poster session. The three-day meeting provides graduate students and young researchers with opportunities to present their work, to learn about recent progress and open problems, and to meet other workers in the rapidly-developing field.

Conference web site:
http://www.cims.nyu.edu/events/special/